Infrastructure Support for Doctoral Research in Optics & Photonics

HRD- 0400041

Infrastructure Support for Doctoral Research in Optics & Photonics

Hampton University

PI: Hommerich, Uwe H.

Hampton University will strengthen the education and research
capabilities of its Ph.D. program in physics by (1) enhancing the institution's research infrastructure and productivity in optics & photonics; (2) increasing the number of students from underrepresented minority groups earning Ph.D. degrees in physics; and, (3) building a pipeline of undergraduate students pursuing advanced degrees in science and engineering. Project activities include faculty professional development, postdoctoral researchers, visiting scientists, student outreach, student assistantships, supplies, and research equipment.

Research in optics & photonics will focus on luminescent materials development and nonlinear optical spectroscopy of oxide nanoparticles. Outcomes of this research impact a wide range of technological developments in the area of electro-optics and lasers. This research also advances the fundamental understanding of structure-property relations in luminescent materials and provides deeper insight in the nonlinear optical properties of nanoparticles.
The multi-disciplinary nature of the program will enhance the quality of education and research in several science and engineering disciplines at Hampton University. Educational enhancement activities include curriculum development in optics and photonics, student research experiences, outreach, and the development of student internships with external partners.